Mathematical Sciences: Sacks Symposium

This award supports a conference entitled: "Sacks Symposium". The conference will be a four-day symposium in mathematical logic, to be held at M.I.T. in May 1993. It will be a forum for the presentation of new results in mathematical logic and will commemorate the 60th birthday of Professor Gerald Sacks.